Tree Representations and Probabilistic Zeta Functions

DMS-0300321
Boston, Nigel

Abstract

Title: Tree Representations

The investigator and his collaborators are developing a theory of
Galois group actions on rooted trees, in analogy to the well-established
theory of such actions on p-adic vector spaces. The Fontaine-Mazur conjecture
and generalizations of it predict that for Galois groups of number field
extensions unramified at p the latter actions have finite image whereas
there should exist tree actions with infinite image. The investigator's
program will identify these actions and hence these (as yet mysterious) Galois
groups, allowing direct verification of Fontaine-Mazur in these cases.
Possible spin-offs of this include improved root-discriminant bounds and
a quantitative version of Fontaine-Mazur along the lines of Cohen-Lenstra
heuristics, together with applications for the pro-p group theorists such
as new families of branch pro-p groups.

Number theory has been revolutionized in recent years by the use of
"Galois representations", most notably by Wiles in his proof of Fermat's
Last Theorem. In particular his co-author, Taylor, has gone on to apply
these techniques to many other longstanding problems. The only drawback
is that these methods only work in one half of cases, the "p-ramified" ones.
This proposal develops a new theory of Galois representations suited to
handling the other half. The work of Taylor and Wiles proves cases of the
fundamental Fontaine-Mazur conjecture, from which solutions to Fermat's
Last Theorem and similar equations simply follow - in the other half
the Fontaine-Mazur conjecture has many striking consequences and the new
theory presents a program for verifying the conjecture and hence its
corollaries.